GEM: Investigations of the Ionospheric Signatures of Cusp, Magnetopause and Boundary Layer Processes with an Imaging Riometer at Sondrestrom, Greenland

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. This grant is for support to place an imaging riometer at Sundrostrom, Greenland to be used in conjunction with GEM activities. Specifically, this grant will investigate the nature of transient dayside precipitation regions and the relationship to other short-lived ionospheric perturbations near and within the high-latitude cusp region. ***